Conference: NSF Workshop on Quantum Technologies for Cyber-Physical Systems

This proposal focuses on the intersection of cyber-physical systems (CPS) and quantum information science and technology. It brings together researchers from academia, industry, and government in these fields. The objective is to understand the interdisciplinary research opportunities, challenges and future directions.

The workshop is organized around two major tracks. The first focuses on quantum algorithms and optimization for CPS. The second explores quantum computing, quantum sensing, and quantum networking for CPS. These themes are examined through application domains including autonomous systems, smart grids, civil engineering, and advanced manufacturing. A primary outcome of the workshop is the development of an R&D roadmap for quantum-enabled CPS. The roadmap outlines a strategic vision and priorities for the next five to ten years, with the goal of accelerating research, fostering collaboration, and advancing this emerging field.